Academic Research Infrastructure: Development of Automatic Test Station for Network Synchronization Performance Characterization

9601692 Mediavilla, Ricardo Inter American University of Puerto Rico Bayamon Campus Academic Research Infrastructure: Development of Automatic Test Station for Network Synchronization Performance Characterization This Academic Research Infrastructure award supports the development of an automatic test station for synchronization characterization of telecommunications networks. The research projects supported by the award include: 1. The development of the test station. 2. Development of software for the generation of test signals and for the user interface. 3. Research on better synchronization in synchronous optical networks.